Studies in Organized Media

This renewal project, supported in the Analytical and Surface Chemistry Program, focusses on fundamental studies of organized media, including cyclodextrins, polymeric cyclodextrins and dendrimers, for application in analytical separations with particular focus on capillary electrophoresis. A suite of molecular spectroscopic techniques, including fluorescence, absorbance, and circular dichroism, will be utilized in these studies and will be complemented by stopped-flow kinetic methods. During the tenure of this three year project, Professor Warner and his students at Louisiana State University, with collaborative input from Professor Robert Gooden of Southern University - Baton Rouge, will pursue the objective of better understanding organized media for use in separation science. Organized media provide a second phase into which analytes can move from aqueous solution. This partitioning of analytes between aqueous solution and the organized media has wide application in the field of separation science. The organized media can serve as a pseudo-stationary phase and as a way of imparting solubility to otherwise insoluble analytes in aqueous solution. In this project, organized media, particularly cyclodextrins and dendrimers, will be synthesized and their applicability in analytical separations of environmentally significant analytes will be evaluated.